New analytic techniques in differential and difference systems

New methods based on generalized Borel summation and trans-asymptotic
expansions are being developed by a number of analysts and are emerging
as a new field of study, "analyzability theory". The methods enable one
to treat solutions of equations at singularities much more general then
usually dealt with and provide a rigorous foundation to previously
formal calculations. The present proposal aims at developing and
applying these new techniques. The PIs will continue their research in
the context of ODEs, difference equations and PDEs. Applications
addressed include the classification of nonlinear ODEs at irregular
singularities, determining their integrability properties as well as
their reducibility to simpler systems, study of adiabatic invariance,
and Painleve' analysis for difference equations. These techniques will
be used to continue rigorous research of the time dependent Schroedinger
problem under periodic perturbations of arbitrary strength and also of
resonance theory.

The project is a piece in an unfolding enterprise to bridge the gap from
formal calculations to rigorous proofs, and in the advance of what
appears to be emerging as a general theory of singular behavior.
Countless applications exist in mathematics as well as in the study of
physical phenomena.